Stringy geometry and topology of orbifold

DMS-0305125
Yongbin Ruan

Orbifold is the space with simplest kind of singularity where it is locally
modeled on the quotient of a smooth manifold by a finite group. They appear
naturally in many subjects of mathematics and physics. A classical theory
due to Satake has been existed for half of century. But it fails to capture
the true nature of orbifolds. In this proposal, the principal investigator
proposes to systematically study "stringy" geometry and topology of orbifolds,
i.e., stringy properties of orbifolds arisen from string theory.

The principal investigator, Yongbin Ruan, proposes to systematically study
what is called the stringy geometry and topology of orbifolds. These are
important geometric objects arisen from geometry in mathematics and from string
theory in physics, and involve with many branches of mathematics.
This proposal seeks to develop close and fruitful interactions among those
fields. The project is interdisciplinary in its conception. Both physical and
mathematical ideas are used in an essential way. Through research seminar,
organizing and participating at national and international conference this proposal
will also enhance the training of undergraduate and graduate students, as well as
postdoctoral fellows.